Optimal Sensor Location

ABSTRACT

PI: Miguel J. Bagajewicz
Institution: University of Oklahoma
Proposal Number: 0075814

Instrument readings in process plants may be corrupted by the presence of biases and leaks. Data reconciliation is done to obtain process variable estimates. The accuracy of the data and the quality of the information are related to the algorithms used as well as the sensor network used to filter these disturbances. Because plants are usually poorly instrumented for the purpose of data reconciliation, good redundancy is not available to perform this function.

This project involves research in cost-optimal sensor location. Numerical procedures will be developed for large systems. Network performance measures will be addressed: residual reliability, residual resilience, multiple gross error detection capability, etc. Work will also be done for the case of dynamic data reconciliation and for nonlinear systems. An extension to cover the design of sensor networks capable of handling normal monitoring tasks such as accounting and parameter estimation, simultaneously with the detection and isolation of faults, will also be addressed.